Model Investigations of the Transition from Inland to Ice Stream Flow

0125610
Waddington

This award provides three years of funding to study the transition from slow inland flow to fast ice stream flow by making use of a suite of geophysical measurements that have been made near the onset region of ice stream D in West Antarctica. These data provide a unique opportunity to develop and validate glaciological models of the controlling processes in ice stream onset zones. Important processes to quantify are motion at the bed and deformation in the ice. Previous analyses indicate that the controlling resistive forces shift from the bed to the sides during the transition from slow inland flow to fast, streaming flow. Model sensitivity analyses will be used to investigate the relative importance of feedbacks between basal processes and ice deformation in the transition from inland to ice stream flow. Model experiments will determine what factors control the location of the onset of streaming flow, and how that location might migrate when conditions at the bed, or along the flow direction, changes over time. The overall goal of this work is to improve understanding of the evolution of the WAIS drainage system. This study is a first step towards understanding the physics that govern the transition from slow inland flow to fast streaming flow.